Northeast LSAMP Phase II Proposal

Underrepresented minority (URM) students generally attend less selective STEM
institutions, have disproportionately low io2 nd year continuation rateslu in STEM majors,
and across all institutions regardless of selectivity or LSAMP participation achieve 6-year
graduations of <35% compared to >60% for non-minorities. In Phase I of the NE-
LSAMP we have increased the enrollment, retention and graduation URM STEM
students beyond that possible through the initiative of any single institution. As
isselectivele institutions, our Phase II work combines proven interventions (mentoring,
undergraduate research opportunities, etc) and interventions with high potential for
success (Supplemental Instruction in inbarrier courseslr, individual tracking) both to
normalize rates of URM persistence and graduation in STEM and to increase
professional/graduate education placements of NE-LSAMP students.
Using our common commitment to LSAMP as a lynchpin, we have established
working relationships for project planning, information sharing, database management,
and budgetary operations during Phase I . We document our substantial progress
toward achieving the stated Phase I enrollment and degree completion objectives.
URM STEM majors increased by 12% in Year 3 and STEM bachelors degrees awarded
to URM students increased by 50% that year. We are on a trajectory to significantly
increase each measure by the final year of Phase I funding.
To our ongoing Phase I objectives we now add specific Phase II objectives: to
form an Alliance-wide community of LSAMP students through annual meetings and
inter-campus activities; to provide irnear peerlr graduate student mentors for LSAMP
students from NE-AGEP partners; to track individual LSAMP student persistence and
graduation and identify individual graduate STEM enrollment or professional STEM
placement. Alliance partners will track students in a database consistent with NSF
reporting requirements including all data elements that are submitted to QRC (the
LSAMP national reporting database). Along with students demographic and ethnic data,
the database will include sections for research accomplishments and post-baccalaureate
career path whether academic or professional employment.
The NE-LSAMP will continue its successful Phase I activities. Additionally, in
Phase II we will:
Implement an Alliance-wide UROP program as an outcome of our iubest
practicesli analysis at Advisory Board meetings. Faculty involvement with LSAMP
students is a required component of the undergraduate research opportunities now present
at each alliance campus and inter-campus interactions for UROP students will be added.
Partner with the NE-AGEP as a resource for graduate student itnear peerlr role
model mentors for our LSAMP students.
Convene a iostudent leadershipls conference for all URM STEM students each
spring to assist LSAMP students in career exploration and provide information about
applying to and financing graduate education.